Mathematics and Mechanical Engineering

This grant will support interdisciplinary research in mathematics and mechanical engineering. The PI is a mathematician in the Department of Mathematical Sciences at Johns Hopkins. He will spend the 1999-2000 academic year as a member of the Mechanical Engineering Department at Johns Hopkins. During his visit, he
will interact with the various members of the department, but his primary collaborator will be Professor Gregory Chirikjian. He will work on the design and control of novel robots and motors. They will investigate
robotic arms built out of a network of discrete actuators, distributed/modular robot systems, and construction of a spherical motor. This IGMS project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).